Teacher Participation In AAAS Forum 93: Models For Effective Science Teaching

9353683 BELL This conference will bring in at least 80 (K-12) science teachers who will focus on methods for teaching science at the elementary, middle, and high school levels. They will also participate in critical discussions about the methods. Topics to be included are: hands-on discovery-based learning; reflective teaching and action research; cognitively-guided instruction; technology-based science teaching; the relationship between laboratory and classroom work in middle and high school; the role of textbooks in teaching science; and the effect of school-based management on teaching practice. There will be a distribution of the conference proceedings which will cover plenary papers, summaries of the interactive sessions, models of good practice presented by teachers, and an assessment of what makes good practice and how to reinforce it. The conference is expected to have a total attendance of about 400 with a composition of science educators, scientists, business people, state and federal government policymakers, congressional staff, and others for invited presentations and joint discussions. ***